Integration of Neurobiology into the Biology Curriculum

Six neurophysiology workstations, capable of both intracellular and extracellular neurorecording techniques, will equip a new one-semester upper-level undergraduate Neurobiology course. Students will design experiments to elucidate important phenomena in cellular and integrative neurobiology, such as the ionic bases of the resting and action potentials, coding of sensory information, synaptic integration, and modulation of synapses. The proposed equipment will also be used to improve teaching of elementary principles of neurobiology in the General Biology course, and to expand the range of opportunities for student research projects. Funding of this proposal will permit integration into the curriculum of a major field of biological inquiry, and remedy the only major deficiency that remains after several years of sustained curricular improvement.